Dissertation Research: Tempo and Mode in Adaptation to Climate: Insights from the Phylogeny and Phylogeography of the Plant Genus Dodecatheon (Primulaceae)

Global warming poses a serious threat to biodiversity. If individuals cannot
adjust to sudden warming, three responses are possible: migration, local
adaptation or extinction. Understanding how populations have responded to
historical climate change can improve our predictions for the future. The North
American plant genus Dodecatheon provides an ideal study system. Several rare
Dodecatheon species that are endemic to patchy, cool habitats are considered
glacial relicts. Other species are widespread and vary in both habitat and
morphology. Testing the relative strength of the associations between
geography, traits and genetic relatedness in the group will indicate whether
these species have responded to historical climate change by migrating or by
rapid local adaptation.

This project has both applied and basic scientific importance with broader
impacts for society. The results can help predict extinction risk for six taxa
which have conservation status in 23 US States and two Canadian provinces. The
approach developed can provide basic insight into how climate influences the
diversity and distribution of plants. The implementation of the project will
further efforts to train the next generation of diverse scientists by
providing research opportunities to minority students and by developing
classroom presentations for urban high schools.